III: Small: Data-Centric Business Processes: Specification and Static Analysis

Businesses and other organizations increasingly rely on business
process management, and in particular the management of electronic
workflows underlying business processes. These workflows are often
centered around a database. They are typically very complex and prone
to costly bugs, which leads to a critical need for computer-aided
design and static analysis tools. Such tools would result in enhanced
functionality, as well as increased confidence in the robustness and
correctness of complex business processes. They would potentially
benefit a wide variety of applications ranging from e-commerce to
digital government to healthcare and scientific applications.

Classical software verification techniques applicable to static analysis
include model checking and theorem proving. However, both have serious
limitations: Model checking requires finite-state abstraction, which
results in serious loss of semantics for both the business process and
verified properties. Theorem proving is incomplete and requires expert
user feedback. This project proposes an alternative approach to
static analysis. Instead of applying general-purpose techniques with
only partial guarantees of success, it aims to identify restricted but
sufficiently expressive classes of business processes for which sound
and complete static analysis can be performed in a fully automatic way.

Moreover, the target of verification consists of semantically rich
data-aware workflows, in contrast to the traditional process-centric
workflows. Data awareness is a feature of central importance in
applications such as the above, which has recently led to the
emergence of a new approach to workflow specification in which data is
pre-eminent. This approach, introduced by IBM, focuses on data records,
known as "business artifacts" or simply "artifacts", that correspond
to key business-relevant objects, their life cycles, and the
services (or tasks) that are invoked on the artifacts.
IBM's artifact-centric approach has been demonstrated to yield
substantial improvements to the operations of medium- and large-sized
businesses.

The main objective of the present project is to develop
new tools for the high-level specification and verification of such
data-centric business processes. The project investigates the
trade-offs between the expressiveness of the specification language
and the feasibility of the analysis tasks. It aims to establish
tractability boundaries for static analysis and to develop practical
algorithms and heuristics. Tools are to be developed for carrying out
analysis tasks, that will be integrated with Siena, IBM's prototype
for compiling artifact-centric business process specifications into
workflow support code. The technical problems raised are
intellectually quite challenging, and bring into play techniques from
logic, automata theory, computational complexity, algorithms, and
computer-aided verification. The resulting static analysis tools have
high potential for becoming a transformational technology in the area
of business processes.

For further information see the project web page
http://db.ucsd.edu/artifacts